Oceanographic Instrumentation

0203502
Knox
This award to University of California at San Diego will provide instrumentation for oceanographic research for use by the Oceanographic Data Facility of Scripps Institution of Oceanography, as well as specific instruments for use on the four research vessels operated by the institution, R/Vs Revelle, Melville, New Horizon and Sproul. All four of these research vessels are operated by the university as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a GPS unit for vessel attitude monitoring, a thermosalinograph, sixteen computers for shipboard use, two new CTD (conductivity-temperature-depth) systems with carousels for water sampling, three conductivity/temperature/pump sets for use with the CTDs, three new oxygen sensors, upgrades for autotitrator systems, and new cable and fairing for the towed, undulating vehicle system. The shared-use instrumentation supported here will assist marine scientists conduct studies worldwide on SIO and other research vessels during 2002 and future years.
***